Effects of Rapid, High-Dose, Elevated Temperature Ion Implantation on the Microstructure and Tribology of Ferrous Materials

In a cooperative study with Colorado School of Mines the effects of implantation of very large concentrations of ions on friction and wear propertied will be evaluated. The microstructure, microhardness, residual surface stresses and tribological behavior of ferrus surfaces, which have been implanted with up to 20 atomic percent of nitrogen, oxygen, boron, and/or carbon, will be determined and correlated with processing variables.